Genetic and Molecular Analysis of Organ Fusion in Arabidopsis

0077979
Pruitt

Land plants are exposed to a variety of environmental fluctuations and
challenges that require biological adaptations at the outermost surface
or "skin" of the plant. A better understanding of the biology of this
surface has significance not only for plant growth and development but
also pertains directly to the effective use and application of man-made
agents such as agricultural herbicides. Arabidopsis thaliana, a member
of the mustard family, has been chosen as the model organism for these
studies. Significant progress toward elucidating biological features of
the plant surface have already been made using this plant. The research
described here will expand upon this body of work. The biology of the
plant surface as it pertains specifically to its biochemical and
molecular properties will be studied using a collection of plants with
altered surface properties. Using these plants it will be possible to
identify additional components involved in the building and maintenance
of the plant outer "skin". By identifying the constituents that make up
this complex outer layer and developing a guide for how this surface is
put together, a better understanding of how plants mediate responses and
adaptations to their environment will be achieved. Insight into these
fundamental processes may possibly have far reaching economic
consequences by ultimately diminishing the cost of weed management and
the impact of weed-based losses in crop productivity. A reduction in
herbicide use would have the added benefit of decreasing the
environmental impact of modern crop management practices.